Conference on Federal and State Government Collaborative Initiatives in Biotechnology

This is a one-day conference to bring together, for the first time, both the directors of biotechnology research centers and the State and local officials charged with developing and funding these centers, as well as their industry partners and interested Federal officials; to recognize the contributions these programs are already making to technological innovation in biotechnology (including medical, agricultural, marine, and bioelectronics) and their vital role in ensuring U.S. competitiveness in commercial biotechnology; to identify resources and programs made available by the Federal Government, particularly as they relate to exports and technology marketing in Japan and Europe; to permit these individuals to share their experiences, identify common needs and problems, and set an agenda for future cooperation.